Role of Alternative Respiration During Root Waterlogging

Role of Alternative Respiration During Root Waterlogging: This is an ROW planning grant so that the PI can conduct pilot studies and obtain preliminary data that will permit her to submit a research proposal to NSF.